III: Contrastive dual-head transformer for protein bioinformatics, with application to taxonomy-wide disorder prediction

Computational approaches to protein discovery has changed dramatically in the last few decades. While researchers have decoded hundreds of millions of distinct protein sequences, a growing problem remains that they do not know what most of them do. While AlphaFold tool provides a solution for structured proteins, discovering and annotating the functions of intrinsically disordered proteins, which can carry out their functions without structure, remains an open problem. This gap stems from the inability to adequately model genetic sequencing data from multiple kinds of protein interaction. To address these challenges, this project will construct an innovative, general-purpose neural network architecture capable of accurately modeling multiple sequence populations. This network will be used to build and optimize a new TaxOnomy-wide iNtrinsic dIsorder prediCtor (TONIC) for the modeling of intrinsically disordered proteins. The new network architecture will be freely shared and broadly disseminated to facilitate the development of advanced computational tools for other areas of protein analysis, thereby indirectly increasing the rate of scientific discovery across disciplines such as bioinformatics, protein science, structural biology, chemistry, and biophysics.

This project will design, implement, empirically validate, and release a novel contrastive dual-head transformer neural network, optimized to accurately model multiple sequence populations. This novel network will be applied across several areas of protein research, including modeling of intrinsic disorder, flexible linkers, and molecular interactions, and will be shared with the scientific community to facilitate the development of a new generation of tools for functional annotation of proteins at scale. In particular, this project will use this innovative transformer architecture to develop the TONIC tool, which will include taxonomy-aware and taxonomy-specific modules to provide users with flexibility and high predictive performance. TONIC will be used to generate and disseminate accurate predictions for bacterial and archaeal organisms, motivated by their importance to human health, high abundance, and vital roles in the carbon and nitrogen cycles. This award will also enhance the educational mission of the investigator and his research team. This includes high school outreach, teaching undergraduate STEM students, and interdisciplinary training and mentoring of graduate and postdoctoral researchers, with a focus on the transdisciplinary nature of modern computational modeling.